Exploring Science in the Studio

Interdisciplinary (99)
Exploring Science in the Studio is expanding a pedagogical approach that embeds science into courses in the fine arts, design, architecture, and creative writing. The project is engaged in developing and disseminating new pedagogical approaches and non-lab based instructional materials to deliver science content to humanities students. The outputs will be specially-designed and produced mobile units for scientific exploration. These mobile units will provide a replicable and scalable process for bringing science instructional materials directly into classrooms at colleges that do not have stand-alone science departments or facilities. This project has two goals: 1) To enable students in such colleges to understand the transferability of scientific methods of inquiry and knowledge to their practices in art, design, and writing; and 2) To help the humanities faculties in these colleges to integrate science into their teaching on the topic of sustainability. Sustainability is the science focus because of its substantial breadth, and because problems arising from climate change and the need for increased sustainability in the use of natural resources will be increasingly addressed by teams of individuals who contribute not only scientific knowledge, but creativity and innovation. Artists and designers have important roles to play on such teams.